Mathematical Sciences: Real and Complex Differential Geometry

The proposed investigation includes research into Ricci-flat manifolds with Euclidean volume growth, heat equation methods with adiabatic limit techniques for investigating spectral properties of differential operators. Tian will continue research into extremal Kahler metrics and their moduli. There are intended connections with gauge theory and general relativity.